Collaborative Research: Analytic and Geometric Aspects of Convergence Groups

DMS-0305634
Martin Bridgeman

This collaborative proposal details a program that the
researchers are pursuing to extract geometric, analytic and
dynamic information concerning discrete groups of quasiconformal
mappings acting on a compact metric space. The researchers'
program consists of three ``themes'': The first theme concerns
certain geometric properties of Kleinian groups that are induced
from the existence of the ergodic Liouville measure on the unit
tangent bundle of a geometrically finite hyperbolic manifold. A
primary goal is to pair Liouville theory with quasiconformal
deformation theory to the extent that it is revealing of the
geometry of the deformation space of hyperbolic structures
uniformizing a compact co-infinite hyperbolizable three-manifold.
The second theme details an ongoing program to show that various
analytical, dynamical and topological properties of Kleinian
groups (e.g. the exponent of convergence, Hausdorff dimension,
porosity, etc.) illuminate the action of the group when the group
in question is generalized to a discrete convergence group. In
this setting the researchers are primarily concerned with
discrete quasiconformal groups. The third theme centers around
certain non-equivariant interactions between complex analysis and
hyperbolic geometry; it generalizes the first two themes. The
motivating question is: How does the asymptotic geometry of the
convex hull boundary of a Jordan curve reflect the conformal
geometry of the curve? Under various stronger assumptions the
researchers are investigating aspects of this question from both
a geometric and analytic perspective.

The research described in this proposal resides at the
intersection between hyperbolic geometry and conformal analysis.
These topics form a vast and fundamental area of study in
mathematics which dates back to the 18th century, when it was
developed by such mathematicians as Gauss, Lobachevsky, Klein,
and Poincare. Though this proposal does not directly address
physics, we note that both hyperbolic geometry and conformal
analysis (especially in the guise of Teichmuller theory) have
found recent spectacular application in theoretical physics and
cosmology. The proposers are dedicated researchers and educators,
and Boston College and Wesleyan University both have strong dual
identities as teaching and research institutions. An innovative
component of the proposal is to use its multi disciplinary nature
to introduce motivated undergraduates to areas of mathematics
that are currently not well represented (e.g. geometry and
analysis) in the undergraduate degree programs at the proposers'
respective institutions. The researchers propose to initiate and
maintain a ``Joint Boston College - Wesleyan University Working
Groups for Undergraduates and Beginning Graduate Students,'' in
part to entice talented undergraduates into consideration of a
career in mathematical research.